A Comprehensive Approach to Using Internet Resources to Enhance K-12 Education

The Boulder Valley Project will expand the uses and support of the Internet throughout the Boulder Valley School District, Boulder, Colorado, over a three year period. Through concentrating on horizontal infusion into three middle schools and vertical infusion onto one elementary, one middle and one senior high school in a feeder pattern, the training and development will be maximized. The teachers directly trained will become peer instructors. Ultimately, over two-hundred and fifty-eight teacher and administrators will be trained and have access to the Internet including all building principals. The project has three distinct stages. In the first, a core group of teachers who will later become peer instructors is trained on the Internet including e-mail and access to files. In the second stage, the network is used as a practical way to induce students to internalize a foreign language. In the third stage, connectivity and training are spread throughout the district. Curriculum development of lessons which employ the network is done and disseminated. The university and partners cost share 40% of this project.